Purchase of a CCD-Based X-ray Diffractometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Massachusetts in Amherst will acquire a CCDbased X-ray diffractometer. This equipment will enhance research in a number of areas including the following: a) synthesis of novel olefin polymerization catalysts; b) biomimetic solid-state syntheses of inorganic/organic composites; c) crystal structures of stable radicals and related precursor substances; d) studies of metallobiomolecules and synthetic model approaches; e) crystal engineering using functionalized diaminotriazines; and f) the design and construction of solid state materials using 'crystal engineering'.

The X-ray diffractometer allows accurate and precise measurements of the full three dimensional structure of a molecule, including bond distances and angles, and it provides accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.